Mathematics and Computer Science Scholarship Program

Twenty-five lower-division undergraduate and fifteen graduate students in computer science, statistics or mathematics are being supported via financial aid, internships, group sessions, and outside speakers. As they enter the program, they receive an intensive orientation. As they progress through the program, they receive close monitoring to ensure their success via bi-weekly meetings with the PI and monthly group meetings. Students are organized into peer study groups to encourage performance in computer science and mathematics courses.